Studies Involving Atoms in High-Rydberg States

The objectives of this research program are to use Rydberg atoms as a novel tool to study non-linear dynamics in impulsively driven systems, to investigate the control and manipulation of atomic wavefunctions, to probe ultra-low-energy electron/molecule scattering, and to examine the behavior of atoms near a solid surface.